Quantum Cluster Algebras and Monoidal Categories

Many models in the sciences and engineering are based on mathematical frameworks involving commuting variables. However, starting with Quantum Mechanics, a great number of models emerged that led to important mathematical problems involving variables that no longer commute. This project focuses on the comprehensive investigation of noncommutative objects that are at the center of the applications of Algebra to other areas of Mathematics, as well as to Mathematical Physics. Quantum Cluster Algebras are novel noncommutative structures that are very general axiomatically defined family of algebras that is attracting substantial attention across Mathematics and Mathematical Physics, especially when defined at roots of unity. This project addresses important open problems on their intrinsic properties through building bases and studying the way these structures reveal themselves through actions on spaces via matrices. Monoidal abelian and triangulated categories capture noncommutative objects through their actions by matrices in the important case when those actions can be multiplied with each other. The project carries out a thorough study of their supports which in turn is used to understand in detail the noncommutative nature of a higher level of objects, called categories, from which classical noncommutative objects are seen as shadows missing important features of the categorical world. This project contains research training opportunities for students.

Specifically, in on project the PI will build canonical bases of the very general, axiomatically defined class of quantum cluster algebras at roots of unity. These bases will be used to carry out a detailed investigation of their irreducible representations using a link to Poisson geometry. In a different direction, many important quantized coordinate rings will be proved to admit quantum cluster algebra structures, which will give a concrete approach to the study of their representation theory. Finally, the relationship between monoidal structures on abelian and triangulated categories will be studied and functors between the two settings will be constructed. This will be used to develop new methods for addressing the important open problem of establishing key properties for support theories. In turn, these results will be used for the explicit classifications of Balmer spectra in situations of wide interest.